Insuring the Integrity of the UTIG Digital Seismic Reflection Data Archive and Development of a Search and Download Capability

The University of Texas Institute for Geophysics maintains a seismic reflection archive containing data collect by UT investigators between 1974 and 1987. Additional data will be added from more recent UT investigations. All data wil be archived on a web-based, SQL-searchable database. The primary objective is to organize the field data, processed sections, navigations and images in a form that will be useful to investigators at UTIG and elsewhere.